Collaborative Research: Establishment of Mid-Atlantic COSEE.

Abstract:
For collaborative proposals:
Rutgers University, 0215416
Univ. of Maryland, 0215094
Stephen's Inst. of Technology, 0215399
VIMS, William & Mary, 0215433

This collaborative award establishes the Mid-Atlantic Center for Ocean Science Education Excellence to serve 4 states (Virginia, Maryland, New Jersey and New York). Using a 'matrix model', the Center will scale-up successful individual programs at the partner institutions and establish strong linkages between partners. A primary thematic focus is on the visualization and K-12 classroom use of data from ocean observatories and monitoring buoys (Rutgers, UMCES, VIMS). Stephens Institute of Technology will contribute expertise in K-12 educational technology and delivery. Hampton University will serve as a conduit to underrepresented minority groups and provide financial support for both undergraduates and graduate students.